NCSA Hierarchical Data File Software Capitalization: National Distribution and Support

Hierarchial Data Format (HDF) is a popular object-oriented file format originally developed for use in a suite of software tools developed and released by the National Center for Supercomputing Applications. Those tools have been enormously popular, since then, HDF has been adopted for use by other kinds of software throughout the country in other supercomputer centers, national laboratories, universities and industrial labs. HDF files can contain text raster and other kinds of image files, binaries, and custom formats. An HDF file is self-describing and extensible, two very important features in ensuring portability across hardware platforms and a growth path for the future. HDF development is nearly complete. What is needed from this point forward is support for incremental enhancements, more complete documentation, and service for a growing national base of users. This proposal will provide that support for two years.